Undergraduate Mathematics Computation Laboratory for Students of Science and Engineering

9452300 McNulty An undergraduate mathematics computation laboratory for students majoring in the natural sciences, engineering, and the mathematical sciences is being developed. The central thrust of this development is to integrate the use of computer graphics, symbolic computation, and numerical approximation techniques into the freshman and sophomore level courses in calculus and differential equations taken by almost all students majoring in these disciplines.